Implementing an Upper-Division Mathematics Computer Classroom/Laboratory

A computer classroom/laboratory is being established and classroom materials in discrete mathematics and algebra is being developed. Based upon these materials, courses in discrete mathematics and algebra are being taught which emphasize student activity (experimentation, interaction and discovery) rather than student passivity (listening to lectures). These courses will serve as models for other upper division mathematics courses.